Computational Characterization of Hydrophobic Cavity and Microenvironment Reorganization at Electrochemical Interfaces

Chemical reactions at solid surfaces in contact with water depend strongly on how water molecules organize near the surface. The molecular organization of water can influence reaction speeds and the motion of charged species. This project will simulate the structure of water near surfaces under applied electric fields. It will develop methods to predict how changes in water structure affect bubble formation, chemical reactions, and the movement of charged species near surfaces. Computational predictions will be compared with experiments. The resulting insights will be relevant to catalysis, batteries, and chemical separations. Additional benefits will come from training students in computational and interdisciplinary research and building a skilled workforce in science and engineering.

This project will develop a multiscale theoretical framework to understand how water structure and solvation at solid–liquid interfaces control transport and electrochemical reactions. The approach will focus on how hydrophobic solvation and hydrogen-bond networks respond to electric fields, which is not captured by existing models that treat the solvent as a passive medium. The project will extend Lum–Chandler–Weeks theory to include electric field effects and spatial variations near interfaces. This extension will enable calculation of cavity formation free energies that describe bubble formation and gas transport. The project will integrate density functional theory, molecular dynamics simulations, enhanced sampling, and machine-learned interatomic potentials to quantify how ion identity, electric field strength, and surface structure affect water organization, hydrogen-bond dynamics, and proton transfer. Key objectives are to: (1) determine how electric fields modify cavity formation and nanobubble stability, (2) identify how hydrogen-bond network reorganization governs proton transport and interfacial reactivity, and (3) quantify how solvation environments control the movement and transformation of hydrophobic species. The results will be compared with experimental measurements, including surface-sensitive vibrational spectroscopy and electrochemical techniques, to validate predicted water structure and transport behavior. This project will establish a general framework for linking molecular-scale solvation structure to interfacial transport and reaction mechanisms, providing new insight into complex processes at electrochemical interfaces. The project will integrate research findings into graduate and undergraduate courses, provide hands-on coding and multiscale computational modeling training, and offer research internship and workshop opportunities to increase student participation in STEM fields.